NSF Young Investigator

The research project includes an integrated design/construction research program for infrastructure rehabilitation, with two research thrusts: (1) analysis, assessment and planning, and (2) implementation and execution of projects. The primary objective is to develop a conceptual framework and model for producing innovative and integrated design/construction solutions for infrastructure rehabilitation problems.